Acquisition of a Transmission Electron Microscope for Undergraduate Instruction and Research

Through this project, the Biology Department of Haverford College is purchasing a modern transmission electron microscope to support undergraduate instruction and research. All biology majors learn to operate the new Hitachi H-600-3 in their Junior year as part of an intensive laboratory course in cell and molecular biology. The technical and analytical skills gained in this course form the foundation for further work in independent Senior research courses, which regularly result in scholarly publications co-authored by students. Five faculty members in addition to the Principal Investigator will sponsor undergraduate investigations employing this sophisticated instrument.